Science Exhibits at the Missouri Botanical Garden

Interactive science exhibits will be designed, developed, and installed in the Brookings Interpretive Center at the Missouri Botanical Garden. The Brookings Interpretive Center is a new educational facility attached to the Climatron, a geodesic dome greenhouse. The exhibits will be installed in one of five theme areas: Tropical Rain Forest Biome, Tropical Rain Forests at Risk, Global Ecosystem, Desert Biome, and Temperate Biome. In addition to the science exhibits, the project will develop a series of science demonstrations to be used in the Brookings Interpretive Center and will allow for additional signage and audio effects to be added to the Climatron.